The Molecular Basis of Gene Expression in Yeast

Two regulatory proteins alpha 1 and MCM1 from the yeast Saccharomyces cerevisiae cooperate to activate transcription of alpha cell type specific genes. MCM1 protein, which is homologous to the mammalian serum response factor, is a multifunctional protein implicated in several processes in the yeast cell. Both the alpha 1 and MCM1 proteins bind their DNA recognition sequence in both duplex and single stranded DNA. Since most DNA binding proteins recognize B form DNA and contact the sugar-phosphate backbone, this is an unexpected activity. The hypothesis that the proteins unwind duplex DNA to generate single stranded DNA will be tested; thus two apparently different activities could be in reality a single activity. The relationship between the duplex and single strand binding activities will be analyzed by comparing 1) the protein-DNA contracts, 2) the sequence requirements for binding and 3) the domains of the proteins required for each type of binding. Selection of a alpha 1 mutations in vivo will be used to extend mapping of the domains. The unusual binding properties of other proteins are integral to their function. %%% This research, which deals with issues potentially very important for eukaryotic gene expression, has the potential for wide applicability in biotechnology. It is an interesting and potentially significant phenomenon, and the research planned will help to delineate the biological role for the unusual findings to date. The planned research will also provide useful training for student associated with the project.